Mathematical Sciences: Investigating Global Differential Geometry

Zhiyong Gao has been doing some of the very best recent work on demonstrating the existence of metrics with various curvature properties. His results on the existence of negatively Ricci curved metrics and on stability of negative Ricci curvature under connected sums are first rate. In the current research the emphasis is placed on the existence of positive scalar curvature metrics, the existence of negatively Ricci curved metrics and the existence of Einstein metrics, realizing the positive Ricci tensor on 3-manifolds.